Topics in the Analytic Theory of $L$-functions

The investigator and his colleagues study several problems in the analytic
theory of L-functions. The long term goal of these projects is to gain an
improved understanding on zeros of L-functions, and on the distribution of
values of L-functions and related number theoretic objects. In
collaboration with Zeev Rudnick, the investigator is developing methods
to obtain lower bounds in many families of L-functions. These lower
bounds are of the same order of magnitude as the conjectured
asymptotic formulae of Keating and Snaith. In related work, the
investigator is developing a new method for obtaining extreme values of
L-functions, and the emerging ideas seem to be of wide applicability.
The investigator will also work on finding new asymptotic formulae
for certain moments of quadratic twists of L-functions.
Lastly, with Andrew Granville, the investigator will work on
questions from multilplicative number theory, especially
related to character sums.

The investigator's area of research is analytic number theory. The
central objects of study in number theory are L-functions. These
are certain analytic functions built out of arithmetically interesting
objects such as prime numbers. Understanding the zeros and values
of L-functions is one of the major themes of modern mathematics.
Apart from the intrinsic interest in these questions, progress in this
area has practical implications for cryptography and coding theory.